Further International Comparisons of Product and Prices in the Continuing Development of a World-Wide System of Real National Accounts

This project is a continuation of work on the development of a world-wide system of national accounts. The present system by sponsored by the United Nations is the major source of standardized empirical information about prices and quantities of the economies of nearly all free standing political subdivisions of the world. This system of accounts is invaluable for most kinds of analysis of individual economies, intertemporally and at a given point in time, but by itself does not provide a basis for comparisons across counties. The major products of this project are two data sets which are directed at making up for this deficiency. The first of these is a very large table, "The Penn World Table," which up to now has been presented in five successive versions. The second data set consists of finely detailed and integrated bench mark estimates of price parities and quantities for 35 summary categories of goods and services for about 60 countries for the years 1970, 1975, 1980, and 1985. This project will update the "Penn World Table", by expanding its county coverage, and filling in data gaps. In addition, it will develop estimates of new variables for each country. The new variables are of two types: price parities and outputs of disaggregated components of gross domestic product and new estimates of purchasing power parities for the production of outputs by industry. In addition, the bench mark studies of the United Nations International Comparison Program will be reworked on a data archive of a common vintage and based on a common methodology. These updated and expanded data sets are important because they provide the basic information needed for research aimed at better understanding international trade and economic development issues.